Sports Phenomena and Authentic Data for Real-World Knowledge and Artificial Intelligence Interest (SPARK-AI)

The necessity for Artificial Intelligence (AI) competency continues to drastically increase as AI's presence in our lives becomes ubiquitous. A skilled and engaged workforce that understands and embraces AI begins with AI competency. This project will use sports-related AI-supported technologies in real-world contexts to increase interest and competency in AI and quantitative literacy among students in grades 6-8 by providing professional development (PD) to science teachers.

The overarching goals of the project include (1) training a cohort of 6-8th grade science teachers to become knowledgeable and effective instructors who can confidently integrate AI competencies into their science curriculum and improve students' AI literacy; (2) supporting science teachers in developing and piloting sports-related anchoring phenomena lesson modules that integrate AI technologies and enhance AI competencies and quantitative literacy for middle school students; and (3) investigating the impact on teachers' efficacy in teaching and learning AI competencies and data analysis and interpretation, their attitudes toward AI and data analysis and interpretation, and the content knowledge they gain regarding AI competencies and data analysis and interpretation. The project will answer several research questions concerning the association of the intervention with teachers' attitudes, efficacy, and content knowledge in AI and quantitative literacy as well as factors influencing their ability to integrate the lessons in their classrooms. Those questions include: (1) How does engagement in PD that integrates AI competency influence middle school science teachers' efficacy in teaching with AI and their attitudes toward AI in general? (2) How does engagement in PD that integrates real-world, authentic data influence middle school science teachers' efficacy in teaching and analyzing and interpreting data and their attitudes toward data analysis and interpretation? (3) Which features of the PD did teachers identify as most beneficial for supporting the development and implementation of lesson modules that integrate AI-supported technologies to facilitate student learning of AI competencies and analyzing and interpreting data? (4) What factors influence the extent to which participating teachers implement their developed lesson modules?